Travel Support for American computational scientists to attend a conference " GPU solutions to Multiscale Problems in Science and Engineering "

This award will provide travel funds for a group of young americal computational physicists to attend a conference " GPU solutions to Multiscale Problems in Science and Engineering ". The conference is directed toward applications in the geophysical sciences.